TC:Large:Collaborative Research:Combininig Foundational and Lightweight Formal Methods to Build Certifiably Dependable Software

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)

This research focuses on combining foundational and lightweight formal
methods to verify the safety, security, and dependability of
large-scale software systems. Foundational approaches (to formal
methods) emphasize expressiveness and generality, but they have not
been successfully scaled to large-scale systems. Lightweight
approaches emphasize automation and scalability, but they are less
effective on low-level programs and on providing explicit proof
witness. The PIs are developing new high-level and low-level
lightweight methods and adapting them into various foundational
verification systems. More specifically, at the high level, the PIs
are developing lightweight dependent-type systems and
separation-logic shape analysis, and connecting current methods such as
conventional type systems, slicing analysis, and flow analysis; at the
low level, the PIs are designing specialized provers and decision
procedures to verify low-level programs and to support certified
linking of heterogeneous components. If successful, this research will
dramatically improve the scalability of foundational verification
systems and provide new powerful technologies for building trustworthy
software systems. Combining lightweight and foundational approaches
also provides a common thread that will pull different verification
communities together and unify them into a single framework